Photodynamics of Metalloporphyrins

Dr. Greenbaum proposes to study the environment-specific photodynamic activity of a group of synthetic metalloporphyrins used as heme oxygenase inhibitors. Absorption of light by some of these porphyrins in aerobic environments results in generation of singlet oxygen, which may cause irreversible modification of target biological molecules. The photoreacitivity of a particular compound depends upon the central metal atom, ring substituents, and the environment in which the porphyrin is localized. By use of various biochemical and spectroscopic techniques, the importance of electrostatic interactions in porphyrin-porphyrin, porphyrin-protein, and porphyrin-membrane associations and specific mechanisms of porphyrin-mediated damage to the various targets in these model systems will be studied.